Spanish Star Date

9453796 Bash The University of Texas at Austin's McDonald Observatory is requesting $581,736 over three years to produce and distribute a Spanish language version of Star Date, a daily radio program that covers astronomy, space exploration, and other space-related topics. The purpose of the new program is to increase scientific literacy among the Spanish-speaking segment of the American population, inspire a greater interest in astronomy and space science, and encourage younger listeners to enter space or other science-related fields. Collateral ancillary material related to astronomy will also be developed and distributed.